The Geometry and Topology of Harmonic Maps to R-Trees

Abstract

Award: DMS-9971860
Principal Investigator: Richard A. Wentworth

The Principal Investigator's main interest is the study of
geometric structures arising from equivariant harmonic maps to
R-trees, especially where the domain is a compact 3-manifold or a
symplectic 4-manifold. Harmonic maps to non-positively curved
metric spaces have had many applications to rigidity-type
questions. At the same time, group actions on R-trees (a
particular example of such a metric space target) have played an
important role in combinatorial group theory and 3-manifold
topology. This proposal seeks to understand the relationship
between the analytic and topological aspects of these problems.
The research will explore the interaction between harmonic maps
and incompressible surfaces, taut foliations, and essential
laminations in 3-manifolds. A second part of this project will
study the notion of an SL(2,C) Casson invariant.

Mathematicians have long been interested in classifying the
possible shapes of geometric spaces. Of particular relevance to
the physical world are spaces of dimensions three and four.
These are, perhaps surprisingly, also intimately related to the
study of knots. Classically, the methods used for research in
this area have come from algebra, topology, and analytic function
theory. More recently, in part motivated from the physics of
vortices, new techniques have been developed involving maps which
minimize energy. This project seeks to explore the topological
ramifications of this approach.